Travel: NSF Student Travel Grant for the 2026 Communication, Digital Technology, and Organization (CTO) Doctoral Consortium at the Academy of Management Annual Meeting (AoM 2026)

This grant will support travel for about 10 dissertation-stage students at U.S. institutions to participate in the Communication, Digital Technology, and Organization (CTO) doctoral consortium at the 2026 Academy of Management (AoM) convention. The CTO division of AoM is a leading international forum for research and practical work related to the use and impact of information and communication technologies in organizations and society. The doctoral consortium will provide students with feedback on their work from other students and faculty members, allowing them to enhance their dissertation research proposals. Further, because of the range of the business sub-disciplines and communities involved in the AoM conference, the consortium will allow students to establish research connections beyond their own disciplines and develop a better understanding of the different research communities, which will facilitate their participation in future interdisciplinary research.

Participating students will be chosen to span a range of disciplines and topic areas that CTO research addresses, as well as a range of institutional types and backgrounds. Students who are just before or after their dissertation proposal will be prioritized, as well as students with demonstrated financial need; this will allow students who might not otherwise have support to attend the consortium. Students will be assigned in small groups to faculty mentors, with each student getting feedback from both the mentor and other student participants. There will also be a career professionalization session in which panels will discuss publication and reviewing, interviewing, and academic career management.